Second International Congress on Optical Particle Sizing to be Held in Tempe/Phoenix, Arizona, March 5-9, 1990

Funds are provided to partially support the Second International Congress on Optical Particle Sizing and the associated Workshop on Future Directions in Optical Particle Sizing Research, to be held March 5-9, 1990. The impetus comes from the researchers in the area who, because of the interdisciplinary nature of the many applications of particle technology, are active in a broad range of formal technical organizations and societies. The Congress and Workshop will bring together researchers from industry, government, and academia to discuss the present state and future needs for radiation sources and electro-optical components used in characterizing particles and dispensed media. Particulate and multi-phase flow processes control the ultimate performance of a large number of important systems involved in metallurgy, pharmaceuticals, atomization and sprays, cloud physics, and thermal or plasma spraying/coating. Advances in both research and industrial process facets of these applications will require improved diagnostics for the multi-phase system, with characterization of the dispersed phase being a dominant part. Optical methods for multi-phase flow diagnostics, by virtue of being noncontact, nonintrusive, and potentially real-time, will be required in next-generation sensors for intelligent process control.